Integration of Molecular Modeling Techniques into the Undergraduate Curriculum; An Academic-Industrial Alliance for Curriculum Development

This project is establishing a computational chemistry facility in order to introduce undergraduate students to the concepts of modern molecular mechanics and molecular modeling. The facility integrates these modern computational methods into a broad range of chemical topics extending from theoretical physical chemistry to bio-organic DNA chemistry. It is utilized in both the classroom and undergraduate research environments. An academic- industrial alliance is being established to acquaint students with an industrial perspective for the use of these tools. In addition, the industrial consultants suggest and develop new computational experiments for classroom use as well as conduct workshops for high school science teachers during the summer months.